Breaking Waves: Their Kinematic Properties and Their Interaction with the Bottom

The research will deal with the kinematic properties of periodic breaking waves and their interaction with the bottom. Wave period amplitude, and bottom slope will be controlled in a series of experiments in a wave tank. A forward scattering dual beam laser anemometer will be utilized to obtain velocity data. The research results are relevant to evaluation of forces, erosion, and damage due to breaking waves along the shore line.